A Proposal from the University of Minnesota to Join the Purdue University/University of Connecticut Center for Pharmaceutical Processing, an NSF Industry/University Cooperative Res

This is an application for a planning grant of $10,000 to join and existing NSF Industry/University Cooperative Research Center for Pharmaceutical Processing, established at Purdue University with an affiliated site at the University of Connecticut. This application is from four faculty members in three departments, Pharmaceutics, Food Science and Nutrition, and Chemistry, at the University of Minnesota. This application stresses the fundamental understanding, at the molecular level, the effects of processing on critical quality attributes of pharmaceutical products and in minimizing validation requirements through improved process monitoring. The plan is to recruit six additional industrial companies to become members of the Center, to prepare a descriptive brochure, and to participate fully in the Center's activities.